Biennial Variability and the Spring Persistence Barrier in ENSO

Clarke
9818650
Further investigations of the El Nino Southern Oscillation (ENSO) phenomenon
will be conducted. A statistical decomposition into a fixed quasi-biennial mode
and a low-frequency mode is proposed to study the observed biennial variability
of ENSO and to predict key ENSO variables. The biennial decomposition will
also be used to try to improve predictions of rainfall over the western equatorial
Pacific and the Indian monsoon rainfall. Second, a intermediate coupled ocean-
atmosphere model will be used to understand how biennial variability and the
spring persistence barrier are incorporated in ENSO.